VINE Follow-Through: Developing Strategies and Materials for Promoting More Meaningful Classroom Follow-up to Informal Hands-On Investigations

9355551 Hollweg The North American Association for Environmental Education VINE Follow-Through Project builds on the existing VINE Program in which youngster investigate ecological interactions occurring on their school grounds. VINE Follow-Through: (1) Works with Leadership Teams in three cities to design and test a set of strategies for developing collaborative teams and leading professional development initiatives. The strategies are designed to enable teachers to follow up on VINE investigations in a manner that will enable students to do more science and construct meaning from their experience. (2) Documents those strategies and produces professional development materials which can be used to apply this model in additional settings. (3) Evaluates this model for building on informal science education experiences and promoting science education reform, and assesses its potential for use in conjunction with informal science education experiences offered through science museums and other community-based institutions. Each city's team includes five experienced teachers, a district curriculum coordinator, a university science educator, an action research expert, and a VINE project coordinator. ***